Research Equipment for Symbolic Processing in Computer Vision

This recommendation is to provide funding to enhance the computational facilities for research in computer vision and related areas in the Electrical Engineering and Computer Science Department at the University of Michigan. The research efforts in the Computer Vision Research Laboratory address almost all aspects of computer vision. There is, however, a clear emphasis on symbolic computation. The activity will involve integrating symbolic computation with the low-level processes. The increasing requirement for symbolic processing has resulted in an emphasis on LISP machines. This award will provide funding for a set of high-quality workstations which will provide the necessary capabilities.